CAREER: Bolt-On Scalable Systems for AI-Powered Query Processing over Structured and Unstructured Data

Many organizations use databases to store information such as customer and product data, medical records, scientific datasets, legal documents, or cybersecurity data. This project will build new software tools that can be added to existing databases to make it easier and faster to process information using artificial intelligence. These tools will help a broader range of users, including non-experts, run artificial intelligence-powered tasks, such as predicting future events based on stored information, finding documents or images that relate to a user's search written in everyday language, or sorting through and connecting information using instructions in everyday language.

The project is organized around three research thrusts that address scalability bottlenecks associated with the three types of queries described above. The first thrust will develop a training system for streaming predictions over multi-table databases. The system uses a multi-versioned memory approach to accurately capture dependencies among database updates over time while enabling parallel execution. The second thrust will develop a distributed vector index that improves search throughput by coordinating work across servers through an adaptive algorithm. The third thrust will introduce a relational key-value caching system for semantic query execution, reducing the cost of large language model inference by reusing intermediate representations across semantic operators.

Proficiency with artificial intelligence-powered data systems will be essential for future computing professionals and researchers. The project will broaden participation in these technologies through education, mentoring, outreach, and open-source software. New course materials, hands-on assignments, and honors activities will prepare undergraduate and graduate students to build and use these systems. Undergraduate students will gain research experience through independent studies, summer research, and the Early Research Scholars Program. Outreach activities through the Massenberg Institute will introduce high school students to artificial intelligence. The software developed by the project will be released as open-source software and evaluated in real-world applications, including cybersecurity.